An Extended Cross-Cultural Time Allocation Database

This project will expand the existing Standardized Cross Cultural Time Allocation Database (created under NSF award BNS 8419033) by three times, from 17 datasets to 50. The advantages of doing so are that previous work has made the addition of new datasets a relatively straightforward and inexpensive process; that a number of high quality datasets now exist or are being collected in new fieldwork, but can not be added to the database because current resources are not sufficient; and that a 50 dataset sample will allow superior hypothesis testing over a 17 set sample. Each new dataset will be published as a monograph, containing a user's guide, cednsus, cultural context summary, original data source codes, and standardized data codes. This research is important because it adds to a developing database of research on how primitive and peasant peoples spend their time. This will allow the development of theory through hypothesis testing on an improved sample of behaviors.